Ultrapurification of Superconducting Powders

In the preparation of superconducting powder (Tc = 110 K) in the Bi-system, the precursor superconducting powder (Tc = 80 K) has similar composition and physical properties as the 110 K phase. The objective of this project is the separation of the 110 K phase powder after a significant fraction of it is formed. Considering that there is no significant difference in the physical properties (e.g. density, electrical and magnetic characteristics) of the 80 K phase and the 110 K phase, separation techniques based on differences in such properties can be ruled out. In this study, aqueous biphase formation technique and selective flocculation technology will be examined to separate the 110 K phase from the 80 K phase. Preferential fractionation of 110 K (or 80 K) phase in the polymer rich (or aqueous phase) will be achieved using dextran, cellulose and other synthetic polymers. Separation of the two phases by the selective flocculation technology would also involve preferential interaction between a given particle phase and polymer. The polymer examined would include, polyacrylamides, polyacrylic acid and polyethylene oxide. It is expected that the fundamental knowledge base generated in this study would be used in the processing of superconducting powders, as well as other applications related to materials production and environment.